NeTs-NECO: Study of the Fundamenal Compatibility Space of Wireless Routing Metrics

Abstract:
The current rich collection of wireless routing designs brings significant compatibility issues between different design choices. A combination of arbitrary designs of routing components with a routing metric may result in catastrophe on a network's normal operation, such as routing loops, inconsistent routing decisions, suboptimal paths and routing instability. Previous works for modeling routing metric designs focused on several IP routing protocols deployed for the Internet. There remains a serious lack of understanding of the compatibility issue for wireless networks. The objective of this project is to address this challenging issue by systematically studying the fundamental compatibility space of routing metrics for different wireless routing designs. The proposed project will move the traditional simple linear wireless routing metric design into the new era of non-linear design and provide in-depth analysis of potential incompatibility issues. The routing theory developed in this proposed project is a major step in the understanding of interoperability and compatibility between wireless routing protocols. In addition, the theory of compatible routing designs also brings insights for developing flexible wireless routing architecture so that designs that potentially may put too many restrictions on the development of routing metrics can be avoided. The proposed research will foster the integration of research and education by expanding the existing curriculum with the new results from this project. The outreach component of the project includes disseminate research results and pedagogical materials via education and industry outreach programs.